The Development of Cultural Complexity in the Shumagin Islands

The prehistory of the Aleutian Islands is poorly known and there is little understanding of the development of cultural complexity in this region. This archaeological investigation involves the excavation and analysis of structures and middens in the Shumagin Islands. The project is designed to determine how many of the structures were occupied simultaneously and what variation exists in larger and smaller structures. In addition to determining the distributions of implements and prestige goods, the excavations will render food remains indicative of diet. Combined with this new information, overall patterns of site densities in the Aleutians will enable estimates of prehistoric Aleutian populations.